US-France Cooperative Research: Effects of Arochlor 1254 on Bacteriostatin Synthesis

This award will support collaborative research between Dr. Edwin Cooper, University of California at Los Angeles and Dr. Philippe Roch, Institute for Animal Biology, University of Bordeaux, France. The objective of the project is to develop a non-mammalian model biotic assay system using the earthworms Lubricus terrestris and Eisenia fetida for rapid, sensitive and inexpensive screening and prediction of deleterious effects of environmental xenobiotics on immune function. The earthworm possesses many components of an effective animal model for screening immunotoxic effects: 1) it has immunological functions which are analogous to those in higher animals, including mammals, 2) its immunobiology is well understood, 3) it has a history of use as a bioassay organism, particularly with biocides, 4) compared to mammals, it is an extremely cost effective animal, and 5) being an invertebrate, it is a non-controversial animal. Preliminary work by the investigators of the immunotoxicity of Arochlor, a known immunotoxicant in mammals, strongly supports the earthworm's suitability as a model organism for analyzing xenobiotics. The proposed research will extend this work by examining the humoral immune system of the earthworm using Arochlor to identify how the earthworm's antibacterial response is immunosuppressed and to understand the mechanisms of immunosuppres- sion at the mRNA level. Drs. Cooper and Roch have had a long standing and productive collaboration in studies of invertebrate immunity and this project will benefit from their complementary expertise.